Testable Approaches and Design for Array Systems

Three topics in constant testability (or C-testability) for homogeneous structures of combinational and sequential circuits is being investigated. C-testability methods are being extended into new areas including systems. The first topic is cell decomposition where an unrestricted, component level fault model is being analyzed. Questions of dividing a cell into components that can be tested, and of devising a hierarchal organization for the testing process are being investigated. Second is C-testability of sequential arrays using checking and touring methods. Procedures for testing sequential arrays using unique input-output sequences are being examined. Third is concurrent C-testability for Built- in-Self-Test (BIST). Structures amenable to array implementation in combinational and sequential cells are being explored to assess latency time and hardware overhead.